Postdoctoral Research Fellowship in Biological Informatics for FY 1999

This action funds an NSF Postdoctoral Research Fellowship in Biological Informatics for 1999.

The research and training plan is in the area of eukaryotic genetics and is entitled "Methods for characterizing the effect of maternal genes on the expression of early developmental traits in offspring."
Genes expressed in mothers often influence the expression of traits in their offspring. These so-called maternal effects are ubiquitous but have traditionally been ignored in studies of genetic architecture (e.g., QTL analysis). Methods are being developed to incorporate maternal effects into QTL analyses and apply these methods to examine the genetics of development in the mouse.